Thermodynamics of Magmatic Processes

Direct studies of melting and cystallization of simple and complex silicate melts will be performed by high temperature calorimetry and x-ray diffraction at 900-1500oC. The goals are to obtain enthalpies of fusion of minerals present on the liquidus in silicate systems, to make direct measurements of enthalpies of mixing in the molten state, to characterize the absorption (release) of heat during the melting (crystallization) of complex multicomponent systems, and to directly observe melting and crystallization. The data will be used in models of heat balance during pluton emplacement, in models of magma crystallization in lava lakes, and in models of other magmatic processes.